Washington MESA Powerful Parents Planning Grant

9705255 McGowan This planning project, sponsored by the Washington MESA program, will carry out a planning program which will result in a full proposal to support a strong parents program in the four MESA centers in the State of Washington. With funds from the planning grant the MESA staff will do an assessment of need for a parents program at ten target sites, identify potential partners in working with the project and develop a parent involvement plan for each center. Specific tasks will be to identify a parent coordinator at each site, to prepare the sites to deliver a program for family math, science and technology training and to develop parent leaders at each site who will work with the schools so that they can deliver a strong math, science and technology to all students as well as prepare parents to become active in their children's learning.